Advanced ZPL Compiler

This research project is directed at the design and detailed specification of the Advanced ZPL language in anticipation of its full experimental evaluation. Advanced ZPL is intended as the programming language for scientific and engineering computations that are to be run on parallel supercomputers. Unlike ZPL (and other antecedent data parallel languages) Advanced ZPL is suitable for general parallel algorithms. Advanced ZPL contains ZPL as a proper subset, giving it full support for data parallel computation. In addition, Advanced ZPL provides the capability to express thread parallelism, task parallelism and pipelining. ZPL provides array data structures, while Advanced ZPL adds general data structuring capabilities. Control over data motion and computational granularity are provided. The goal is to produce a precise specification with which to write sample applications. Based on these applications users can assess the convenience and expressivity of Advanced ZPL, and compiler writers can formulate ways to produce efficient, portable code for it.